Studies on Einstein Metrics and Related Topics

Abstract

Award: DMS-0072591
Principal Investigator: Michael T. Anderson

Anderson and LeBrun both plan to study the global Riemannian
geometry of low-dimensional manifolds, with an eye towards the
ramifications of these results for smooth topology, algebraic
geometry, and theoretical physics. Anderson will continue work on
Thurston's geometrization conjecture, and study relations of this
conjecture with global existence and singularity formation for
vacuum space-times in general relativity. LeBrun will study
relations between properties of the total scalar curvature
functional and smooth topology, as well as related problems
concerning quadratic curvature functionals. In addition,
Anderson and LeBrun both plan to investigate topics in the
geometry of asymptotically hyperbolic manifolds, and relations
with current issues in string theory and the AdS/CFT
correspondence.

Anderson's investigations are directly related to questions
regarding the physics of black holes and the shape and long-term
evolution of the universe. LeBrun's work studies fundamental
questions arising from Hawking's quantum gravity program, and
relates the Seiberg-Witten equations of high-energy physics to
the study of gravitational phenomena.